CAREER: Seasonal patterns of carbonate diagenesis in Casco Bay, Maine: An integrated project coupling research with undergraduate education.

ABSTRACT:
Green/9984708
This CAREER award provides funding to investigate the relationship between the seasonal patterns of calcium carbonate diagenesis and the time-dependent changes of benthic foraminifera and meiofaunal-sized bivalves in the nearshore deposits of Casco Bay, Maine. This work will contribute to our understanding of the marine cycling of CaCO3 and atmospheric CO2. In the educational portion of this proposal, the PI requests funding to develop and implement educational programs that integrate "hands-on" and "minds-on" research opportunities into undergraduate students' experiences at a small liberal arts college. The program will be designed to encourage female undergraduates to pursue careers in science.